Fermi Surface Cross-Sectional Images from Photoelectron Angular Distributions

Recent interest in areas such as thin-film magnetics and high temperature superconductivity have underscored the need for detailed measurements of Fermi surfaces. This proposal addresses the problem by using a newly developed technique using photoelectron spectroscopy to determine Fermi surfaces. The technique is generally applicable to a wide range of materials and will provide information on both bulk and surface systems. It is sensitive to the structure of the Fermi surface in regions of low symmetry and studies can be performed at elevated temperatures where phase transitions may be important. Measurements will be made using a novel display-type electron energy analyzer that will produce energy resolved two dimensional images of photoemission intensity versus emission angle. The work will be conducted at the LSU Center for Advanced Microstructure and Devices (CAMD) synchrotron light source. The initial investigations will involve noble metals which are well-understood from previous studies and will later be extended to metals with heavily nested Fermi surfaces. Some of these materials undergo magnetic phase transitions where the topology of the Fermi surface can change substantially; such experiments will support further theoretical progress. These techniques will also be applied to high temperature superconductors where the nature of the bands intercepting the Fermi surface will be investigated. Since the method samples large regions of k-space, these materials will be surveyed for unexpected features and will provide the rapid overviews of electronic structure. Conventional instrumentation will be used for high- resolution studies when appropriate. The work will be done in collaboration with researchers at Lawrence Livermore Laboratory, the National Institute of Standards and Technology at other universities. %%% As new classes of materials are developed, techniques for characterizing their relevant properties must improve. This need will be addressed in the development of a new display-type electron energy analyzer, to perform photoelectron spectroscopy in an imaging mode. The measurements rely on synchrotron radiation to eject electrons from surfaces of the material of interest; this radiation will be provided by the LSU Center for Advanced Microstructure and Devices (CAMD) storage ring. By imaging the directions of the emission, the detailed nature of the material's Fermi surface can be explored. This provides information that is valuable for a theoretical understanding of material behavior and gives feedback for improvements in materials processing. Initially, the method will be applied to metallic systems that are well understood by other techniques. The approach will refined to study materials with more complicated Fermi surfaces that can be altered by coercing them to undergo magnetic phase transitions and will be used to demonstrate the flexibility of the methodology. Finally, this advanced instrumentation will be applied to high temperature superconductors as the origin of superconductivity in the cuprate oxides remains elusive. The project provides a new method for characterizing the electronic states at the Fermi surface and will result in an improved understanding of fundamental electronic properties. As the measurements rely on the highest quality materials, collaboration with researchers at the Lawrence Livermore Laboratory, the National Institute of Standards, and at other universities will be undertaken.//